National Ground Intelligence Center (NGIC) Support of the National Center for Atmospheric Research Activities

This is the Basic Ordering Agreement for CSA-7 (AGS-1940618) under the NSF/UCAR Cooperative Agreement (AGS-1852977) to support the National Center for Atmospheric Research Activities funded by the National Ground Intelligence Center.